Continued Operation of NSFnet Network Services Center

The University Corporation for Atmospheric Research (UCAR) proposes to continue to operate the NSFNET Network Service Center(NNSC) for a period of 6 months. The NNSC is operatedthrough a subcontract with Bold, Beranek and Newman (BBN) who will continue to work with other agencies providing network information services to the Internet by providing unique end-user services for the NSFNET scientific and engineeering community. These functions include services such as collecting, maintaining, and disseminating on-line information regarding Internet resources that are availbale via the network; operating a telephone hotline service for users with a variety of questions usually of a non techinical nature, and presenting short courses, seminars, and workshops in support of end-users. The NNSC will also provide public information services which are focussed on the needs ofNSFNET users and their technical support staff. These include publishing newsletters and bulletins, managing and disseminating pertinent mailing lists, assisting authors in writing about NSFNET, and promulgating other promotional materials.***//